An Undergraduate Computer Aided Software Engineering Labora-tory.

This project is to set up a computer aided software engineering (CASE) environment for first course students in computer science. As CASE is already used in the industrial environment, this project will be unique in bringing it into the undergraduate environment. The CASE environment places increased importance on modularization, abstraction, team programming skills and the use of automated aids to software development. Ten Apollo workstations with associated mass storage elements will make up the environment. An important component of this project is the development of software modules and curricular materials for the integration of CASE equipment into the undergraduate environment.